Mathematical Sciences: Computational Techniques from Geometry and Statistical Physics

Over the past few years, the investigator and his colleagues have developed numerical techniques with esoteric and even speculative features. The common theme in these techniques is the use of mathematical machinery and algorithms from one area in a seemingly different arena. In particular, the investigators have used methods from statistical physics and geometry to attack seemingly unrelated problems in computational physics. The problems under investigation in this proposal are both technologically interesting and among the most difficult in computing. The work encompasses: (1) applications of statistical mechanics to fluid mechanics and turbulence theory; (2) the analysis of stochastic systems with filamentary subsystems, in particular polymers and quantum vortices; (3) the exploitation of variable temperature and annealing techniques to untangle and recognize knots and possibly fold proteins; (4) the analysis of kinking in moving filaments and singularities in moving surfaces by interface algorithms based on hyperbolic conservation law theory and differential geometry; and (5) coupling these moving interface algorithms with mean curvature flow analysis to design algorithms for grid generation. Through this work, a considerable body of state-of-the-art, powerful mathematical and numerical techniques will be transformed into practical tools of importance in manufacturing, energy processes, and material science. Sophisticated advancing interface algorithms will be used to compute detailed processes in the manufacture of microelectronic components in computer chips. Research on statistical mechanics and fluid turbulence will be used as part of computer simulations of fluid mixing in combustion processes. Finally, surface advancement techniques for grid generation are aimed at automating a key component of computational fluid mechanics simulations present in modeling and designing flows past aircraft, in engines, and in hydrodynamic devices.